U.S. Student Aid for Attending the 35th Annual International Symposium On Computer Architecture

This award is aimed to aid US students to attend the ACM/IEEE 35th Annual International Symposium
on Computer Architecture which will be held in Beijing, China, in June 2008.
The ACM/IEEE Annual International Symposium on Computer Architecture (ISCA) is the flagship conference in
computer architecture and its conference proceedings are viewed as the most prestigious publication venue in the
computer architecture community. The symposia started in 1973 and it has been sponsored by the two most
important academic organizations in computer architecture, the Special Interest Group on Computer Architecture
(SIGARCH) of the Association for Computing Machinery (ACM) and the Technical Committee on Computer
Architecture (TCCA) of the Institute of Electrical and Electronics Engineers (IEEE). The majority of historically
high-impact publications on computer architecture have been published in this conference.
It is a significant event that the 35th Annual Symposium of ISCA will be held in Beijing, China, in June 2008.
This will be the first ISCA meeting held in China since the symposia started in 1973.
This award will assist deserving students to attend and present their work at the meeting.